Mathematical Sciences: REU Experimental Mathematics

9400754 Miller This award provides renewed funding for a Research Experiences for Undergraduates award in the mathematical sciences. Ten undergraduate students will participate in an eight week program, having been selected from applicants in a nationwide search. Following a period of introductory lectures and computer familiarization, students will begin their research concentration focusing on problems having a common theme. This year's activity is based on computational and combinatorial aspects of group theory with applications to geometry and topology. Students will be divided into small groups, each working under supervision of at least one faculty advisor. Graduate students will also be involved in mentoring activities, bringing their experience and closeness of age to assist students not only with their research but also to give them first hand advice regarding the graduate experience. Each team will prepare a final written report and each undergraduate must make an oral presentation. Those achieving the most success will be encouraged to participate in regional or national meetings of professional societies. ***